Millennial Tsunami Catalog and International Web Site

9802710 Lander This project involves a worldwide expansion to the tsunami database and an extension of the catalog to the end of the millennium, adding data from upcoming symposia and workshops and checking local marigrams for magnitude 6 or greater earthquake data for unreported minor tsunamis. The manuscript will be put online to allow for peer review and adaptation of currently available digital technology applied to updating this catalog for future tsunamis compilations. This expanded database will be available to the research and education communities on the World Wide Web. These innovations in catalog compilations should increase the comprehensiveness and accuracy of the catalog. Photographic data will also be included. Extracts of events in respective areas will be sent for review to International Oceanographic Commission National Representatives. A history of the occurrence and effects of previous tsunamis is the essential starting point in devising an effective mitigation plan and a component of many research efforts. Tsunamis histories, both regional and global, have been produced for this purpose. However, there is no annual summary or single place where information on recent tsunamis can be found. The final report of this project will carry information on the availability and effectiveness of warnings, the awareness of the population to the possibility of a tsunami following a strong earthquake, and the listing of each tsunami and a summary of effects at each observed locality, as well as a geographical index so that effects for a region can be quickly located. ***